Workshop on an Infrastructure for Temporal Databases; Arlington, Texas; June 14-16, 1993

Workshop on an Infrastructure for Temporal Databases The objective of this workshop is to define and establish a common infrastructure for temporal databases. The infrastructure establishes a common technical vocabulary, identifies specific data modeling and query language needs arising from potential temporal DBMS users, identifies concepts and technologies from other data handling areas that could be profitably applied to temporal databases, specifies a single temporal relational data model, lists the specific language features that should be included in a temporal query language, specifies a database schema and example queries that will aid in comparing query language proposals, outlines and populates a DBMS architecture with established query processing approaches, storage structures, and access methods, states the features that should be present in next-generation temporal data models and query languages, characterizes the research questions that are most pressing, and includes recommendations for funding and for building additional infrastructure in the temporal DBMS community. The workshop participants will communicate this infrastructure through a consensus document that will be widely circulated to the research, development, management and planning communities and funding agencies. This document will contain technical results and recommendations and will provide a foundation for implementation, standardization and future research.